RUI: Surfaces and their horizons, geometric structures, and pseudogroups

The proposed research is in the area of geometry and
dynamics. The objective is to understand the asymptotic behavior
of orbits of dynamical systems. One specific problem deals with
surface laminations in hyperbolic three-manifolds. Rather than
studying recurrence phenomena taking place in a compact space a
global approach is taken. The geometry of hyperbolic space has a
well defined visual boundary representing the many possible ways
of diverging to infinity. Moreover, the ambient hyperbolic
geometry affects the geometry of the leaves of the lamination
under consideration. The basic problem is then to study how these
geometries relate with respect to their approach to the visual
boundaries, and to examine the influence that the ambient
hyperbolic geometry exerts on the leaves. Within this program it
is also natural to consider laminations whose leaves have
stronger geometric or analytic properties, or both, as for
example when they satisfy the minimal surface differential
equation. Such hypothesis allows for the use of analytical and
probabilistic tools, and more precise information can be
obtained. Laminations whose leaves are minimal surfaces are also
relevant to understand the geometry of other three-manifolds as
well. They appear to play an important role in the topological
hyperbolization conjecture for three-manifolds, as is known that
non-hyperbolic three manifolds have a lamination by minimal
surfaces. This proposal also includes problems in the area of
rigidity of actions of semisimple groups. The main focus is in
the so-called Gromov's centralizer theorem, a major tool in
understanding the symmetries of geometric structures on
manifolds. Other questions relating to the structure of
pseudogroups of transformations are also proposed.

Dynamical systems are used to model processes in many areas, for
example the weather, physical or chemical processes, and the
evolution of living organisms and their morphology. They are also
used for modeling processes which evolve from a finite amount of
data according to some set of rules, either specified before hand
or of a random nature, as neural networks in the brain or systems
of digital processors in a computer. The objective of the
proposed research is to understand the qualitative structure and
asymptotic behavior of certain dynamical systems. One of the
topics in this proposal is to study the behavior of
two-dimensional systems evolving in a three-dimensional space,
and specifically the interaction of the features of the
surrounding space and the geometry and asymptotic behavior of
their trajectories. This can be approached in a variety of ways:
by purely geometric means, by studying certain differential
equations that define their orbits, or via a probabilistic
approach. Understanding basic features of these dynamical systems
and these spaces, while having intrinsic geometric interest and
beauty, could be relevant, for example, in areas like partial
differential equations, solid state physics, structure of
crystals and quasi-crystals and their defects, statistical
mechanics, computation and algorithms.